Computable Structure Theory

9970452
Knight
This award will support mainly the travel of graduate students in
mathematical logic to professional meetings and to a lesser extent will
support travel of some outside speakers to the Notre Dame Logic Seminar,
which is also important for providing the broadest background in logic
for the students. Finally, a small portion of the funds (about 10%)
will enable the students to have permanent access to certain important
reference books. Knight and her students are working on various aspects of
computable structure theory. One student, Charles McCoy, has several results
connecting definability with complexity. He is now trying to characterize
in a mathematical way the linear orderings and Boolean algebras with the
feature that between computable copies, there is always some isomorphism
at level two in the arithmetic hierarchy. Another student, Andrew Arana,
is beginning work on models of arithmetic and enumerations. Knight herself
will concentrate on problems involving existence of computable copies of
structures. In particular, she hopes to extend the partial results of
Khisamiev on reduced Abelian p-groups with computable copies. She is
interested in a question of Shore, on what statement could serve as a
computable non-structure theorem. Knight has a side interest in systems
theory.
The area of computable structure, a new and arguably more suggestive
term for what has long been known as recursion theory, has its roots in the
discovery more than half a century ago of sets of integers for which no
algorithm exists to decide if a particular integer is a member. Moreover,
another old result (from the 1950's) established that there are incomparable
sets of this type, i.e., two sets such that neither permits one to construct
the other from it in a mechanical way. As a practical matter, one cares
about the speed and efficiency of algorithms and not their mere existence.
Nevertheless, understanding the inherent limits of algorithmic possibility
is an important philosophical accomplishment and triumph of the human
intellect, in a way the ultimate in self-knowledge.
***